Glasses With Fictive Temperature-Independent Volume

Between high silica glasses and normal glasses such as soda-lime glasses, there should be special glasses having a fictive temperature-independent specific volume. These glasses would exhibit no changes in volume, density, refractive index, ionic diffusion, electric conductivity, bulk modulus and hardness during the heat-treatment. It is the objective of the proposed research to produce such glasses and investigate their unique properties.

The glasses to be developed in the proposed research would be useful in producing the non-shrinkage flat panel displays needed for large flat TVs and computers. They would also be useful in clarifying the mechanisms of strengthening of glasses and radiation damage of glasses.